Mechanics of Rubber Seals

This project is to study rubber steal. It should result in bringing some science into an area that has until now been mainly empirical. It should help in understanding what parameters are important to the proper functioning of seals. Nonlinear elasticity models of the material will be used.